Robust Stability and Stabilization of Systems with Real Parameter Uncertainty

This proposal addresses an important problem in system and control area: the analysis and design of control systems in the face of uncertainty. The problem of designing a control system against uncertainties is of fundamental practical interest and has been the main thrust for development of control theory and technology. The proposed research on this subject includes stability analysis, stabilization, and disturbance rejection in the presence of real, possible nonlinear/time varying, uncertainties. Each of these problems is of independent interest and they together follow a natural progression toward the development of a general methodology for analysis and design of uncertain systems. The main object under here will be an uncertain dynamical system described by a linear fractional transformation, and the necessary tools required for this research include advanced matrix theory, convex optimization techniques, and modern robust control theory. The approaches and idea proposed here are believed to be unique and original. In particular, the proposed approaches for the stabilization of systems with structured nonlinear/time varying uncertainty using the combination of convex optimization and advanced separation principle, and using the parameter dependent gain scheduled controller, appear very promising, and are expected to lead to valuable applications in practical design of highly complex uncertain systems.